RIMI: Laboratory for Logic and Databases

HRD - 9628450 Hernandez New Mexico State University This project proposes to continue the operation of the RIMI Laboratory for Logic and Databases, established in 1993 with support from RIMI funds (HRD 9353271). The laboratory supports an environment where research activities in the areas of logic programming and deductive databases can be carried out. Under the umbrella of this laboratory research on theoretical and practical aspects of Query Optimization and Parallel Logic Programming will be pursued. Query Optimization deals with efficient processing of database queries. Research will be carried out on devising techniques that may take data-dependencies into account to transform a given database program into a more efficient one. Parallel Logic Programming deals with implementation of systems that can exploit parallelism from logic programs. A system based on Shared Paged Binding Arrays will be developed on a multiprocessor to implicitly exploit or-parallelism and and- parallelism present in logic programs. One of the principal objectives of this laboratory is to attract, retain, and help minority graduate students to obtain Master's and Ph.D.s in Computer Science. Enticing minorities to pursue graduate studies, in particular Ph.D.s, is extremely difficult. However, we believe that with our first-class research program and facilities, in which minority students can participate and feel an integral part of, this can be readily accomplished, as it has been demonstrated by our success under the current RIMI grant that allowed us to initially establish the laboratory.